Statistical Mechanics of Interfaces and Driven Systems

Theoretical research will continue on the study of interfaces and non-equilibrium systems driven to steady states by an external field. In an ongoing exploration of bulk singularities in driven systems, multi-point correlations will be investigated in models with a uniform drive, annealed random drives, repulsive interactions, and many species. Another area of study involves the interfaces in driven systems. Particularly, the effects of driving on roughening will be studied and selection mechanisms for the variety of bulk phases induced by different boundary conditions will be investigated. Additional studies will be undertaken on the interplay between bulk and interfacial fluctuations; morphological transitions due to curvature dominated closed membranes; and, conceptual questions associated with capillary wave theory. Long term projects include a thorough analysis of finite size effects and quenched impurities in driven systems, a wider class of competing dynamical models and applications to a variety of other related phenomena. %%%